Connections of the Reticular Thalamic Nucleus

Movement is the result of coordinated activity in several areas of the central nervous system. One of the important relay structures is the thalamic reticular nucleus, which has connections both other motor thalamic nuclei and with extrathalamic sites such as the cortex, cerebellum and basal ganglia. Drs. Ilinsky and Kultas-Ilinsky will study the connections of the reticular thalamic nucleus by using methods for tracing neuronal circuitry. Neuronal and synaptic organization will be analyzed at both light and electron microscopic levels. The neurochemical characteristics of transmitter substances in the neurons of the thalamic reticular nucleus will serve as markers to identify the extrinsic and intrinsic connections of these nerve cells. These studies are important because they will increase basic knowledge about motor system control.